Copolymers Containing Rigid Proline Analogs

The study of Poly-a-amino acids are attractive as models for the conformational behavior of the more complex naturally occurring proteins. The preparation and study of synthetic polypeptides with well-defined structures have received considerable interest because these molecules often exhibit stereoregular conformations mimicking natural materials. The purpose of this proposal is to synthesize well defined copolymers of azetidine-2-carboxylic acid and 2,4-methanoproline with proline, and to determine whether the conformation of the polyproline helix can be altered by incorporating rigid proline analogs into the polymer chain. The conformatrions of the polymers in solution will be studied by spectroscopic methods (CD,NMR) and related to chain structure. This investigation will give detailed information on the relative importance of several factors stabilizing the helical forms of polyproline as well as provide a more refined understanding of the role of residue rigidity in determining the chain flexibility of helical polyamides.